Some Problems in Set Theory and Ergodic Theory

Foreman's work is in two directions: ergodic theory and combinatorial set
theory. In ergodic theory he seeks to characterise the complexity of
various classes of ergodic measure preserving transformations, using the
tools of descriptive set theory. In combinatorial set theory he is
continuing a program of applying reflection principles and Shelah's PCF
theory to study classical problems in infinite combinatorics.

Foreman investigates the phenomenon of apparent randomness in physical
systems that are deterministic in nature. A system can be deterministic in
the sense that the behavior of any particular individual (particle) in
that system is completely determined (perhaps by some differential
equations), but on a macro level, any measurement made shows random
behavior. Many systems in nature have this kind of paradoxical properties.
Foreman's other line of research considers difficult combinatorial
problems asked by people such as Erdos in the 1960's that remain major
questions in the 21st century.